Active Tectonics and the Mechanics of Lithospheric Deformation in Northern California Determined by Repeated GPS Measure

One of the principal objectives of this research is to determine how deformation across the North American-Pacific plate boundary in northern California is accommodated. This area is poorly covered by existing geodetic networks and has received relatively little attention. For example, there are only three VLBI sites north of San Francisco Bay. Nearly ten years of VLBI measurements show that more than 60 % of the expected North America-Pacific motion occurs between the Sierra Nevada (stations Hat Creek and Quincy) and the Pacific coast (Pt. Reyes), but do not determine how that motion is distributed. Terrestrial geodetic networks on the other hand, yield more spatial detail but do not span the entire zone of deformation. Northwest of San Francisco Bay they account for only 20 mm/yr, or less than half of the expected relative plate motion. Previous geodetic results suggest that a large fraction of the strain occurs northeast of the san Andreas fault. The PI will determine the distribution of active deformation from the pacific coast across the Sierra Nevada block to the western margin of the Basin and Range. A network surveyed using GPS on a periodic basis and tied to established VLBI sites in northern California.